Teachers + Occidental = Partnership in Science (TOPS)

This four year teacher enhancement program, sponsored by Occidental College, provides two two-week summer workshops for 15 teachers in chemistry and 15 teachers in biology each summer. The workshops will provide training in discipline concepts and the use and development of laboratories employing modern instruments. The summer program will be followed up by an academic year program which includes a highly trained lead teacher who visits each school once a month. The teacher brings with him/her a van equipped with the instruments used by the teachers the previous summer. Other follow up activities include development of a network among the participants, a seminar series, a research associates program (teachers will be selected to carryout research with college faculty), a science information clearing house and a "best experiment competition". The target schools enroll a large number of minority students. The project evaluation will look at whether a technology focussed laboratory program increases the number of students interested in pursuing science. Matching funds from Occidental College are equivalent to about 32% of the NSF grant.